Theory of Laser Cooling of Multi-State Atoms (Physics)

A formalism of quantum optics which takes into account multiple levels of atomic systems and the spatial variations of the polarization of the light field will be developed and applied to problems of laser cooling. Computer simulations of typical situations in three spatial dimensions will be carried out. Finally, a theory of resonance fluorescence for multi- level atoms will be developed and applied to various problems.